Origin of PSD Behavior II: Hysteresis Measurements and Domain Observations of Small Single Particles

Rock magnetic studies have entered a new phase of high- sensitivity analysis, in which it is possible to unravel the physics of magnetism at the level of single magnetic grains. The PI will do a suite of experiments to study magnetic domain behavior and hysteresis loops of single particles, using the magneto- optical Kerr effect and an alternating force magnetometer. The two primary goals of this work are: 1: To determine whether the behavior of a large assemblage of particles is well-represented by he behavior of an average grain making up the assemblage. 2. To extract microphysical data that are critical to understanding the hysteresis behavior of single particles.